Closing the Mathematics Achievement Gap of African American Students: A Conference on the Issues

Closing the Mathematics Achievement Gap of African American Students:
A Conference on the Issues

The National Alliance of Black School Educators (NABSE) and the Benjamin Banneker
Association (BBA), in collaboration with The McKenzie Group (TMG), propose a four-month
initiative to develop a broad-scale action agenda to improve mathematics teaching and learning
for all students, but particularly students of African American descent. As the first stage of a
broader plan to improve science, technology, engineering, and mathematics (STEM)
achievement nationwide, the mathematics initiative seeks funding to convene a conference of
nationally recognized researchers, policymakers, and practitioners to develop an integrated,
research-based design for closing the achievement gap, as well as a framework for implementing
appropriate programmatic and policy strategies.

Intellectual Merit: The project will advance knowledge and understanding of effective strategies
and challenges for increasing K-12 African American mathematics achievement, as well as
promote collaborate among the array of organizations committed to conducting action-research
to close the African American mathematics achievement gap. NABSE and BBA, two leading
advocacy and professional development organizations committed to K-12 STEM reform, along
with TMG.s prior experience with STEM technical assistance, provide a solid grounding for this
research and development (R&D) effort.

Broader Impacts: The development of formal post-conference discussion and concept papers
will broaden the impact beyond the institutions and organizations represented by conference
participants. Furthermore, the combined memberships of over 7,500 African American
educators from school districts throughout the United States, Canada, and the Caribbean will
provide a powerful professional network for sharing the conference publications and findings
and directly impacting classroom instruction. NABSE.s 98 regional affiliates that are located
within BBA.s six regions will also provide venues for continuing dialogue and collaboration at
the regional and local levels. Both organizations will use their electronic communications
networks that include websites and email listservs and their independent national conferences to
further support these efforts. Finally, the overarching goal of increasing African American
mathematics achievement will contribute to national education goals of improved K-12 student
achievement in mathematics